SBIR Phase I: Haptic Robotics for Kitting Powertrain Components

This Small Business Innovation Research (SBIR) Phase I project proposes that haptic robots offer effective and
attractive solutions to the common tasks of Bin-Picking and Kitting, which currently require human workers. A
popular application area is programming an industrial robot to work with specific powertrain parts. The
Problem: Bin-picking robots can only manipulate strong parts with simple geometries in structured or semistructured
configurations; machine vision deals poorly with overlapping objects and unstable and unpredictable
loads or grips. The Opportunity: Haptic systems can compliment machine vision systems using tactile sensory
data to cope with overlapping objects and unstable grip conditions. The Solution: A robotic hand/arm
equipped with unique biomimetic tactile sensors to make a platform for developing grip algorithms for parts
picking and kitting. Innovations include develop algorithms for slip-detection and force-cone grip adjustment;
developing adaptive algorithms using tactile feedback to improve grip pre-shaping; validating algorithms with
physical powertrain parts; and challenging algorithms with real-world uncertainties that are difficult to detect
using machine vision.

The broader impact/commercial potential of this project will result in robots that have more humanlike haptic
capabilities. Currently robots lack tactile sensing and rely on specialized component feeders and gripping tools
to handle individual objects with predetermined gripping features. These items add cost, occupy space, and
consume time, especially when many different objects must be handled. This puts robots at a significant
disadvantage to human workers who use their hands dexterously to handle an unlimited variety of objects.
Nevertheless, robots are best suited to handle tasks that are highly repetitive or dangerous to humans. When
robots handle hazardous materials or manufacturing tasks, they relieve humans of these burdens while often
yielding increased productivity and cost-savings. At the end of Phase I we will have developed a proof of
concept so that our Phase II research can integrate the system into an industrial environment. By addressing the
picking of objects with errors in object pose, position and part-to-part interaction, haptic robots will transform
this important part of the manufacturing process. Such technology will have widespread impact on many
aspects of manufacturing and automation.